Evolution of Structure in the Universe from z=30 to z=3

AST-0071019
Loeb

The goals of this research are to simulate the history of cosmic structure formation from the first generation to the highest redshifts where galaxies and the intergalactic medium are observed. This will be done using hydrodynamic simulations (developed by the CO-I) to improve semi-analytic models (developed by the PI). The work requires very powerful computational facilities which are available to the PI.

Following the Big Bang, the universe started its expansion from a nearly smooth initial state. As the universe aged, small variations in the density of matter grew due to the effect of gravity. Eventually, regions denser than average collapsed and formed bound objects. This project will develop computer models with which to study the nature of the first generation of stars and galaxies that formed as a result of this process. These computer models will be tested over the coming decade with the next generation of telescopes, both from the ground and from space.
***